Planning Grant: Science & Technology Research Center for Growth and Characterization of Artificial Layered Materials

This proposal from the University of Wisconsin.Milwaukee requestssupport to enhance the planning of a Science and TechnologyCenter for Growth and Characterization of Artificial LayeredMaterials. Faculty researchers from four departments in twocolleges of the University , as well as the Laboratory forSurface Studies at Milwaukee, are involved in thisinterdisciplinary effort. It is anticipated that leadership inhigh technology research will increasingly rely on the ability todesign and synthesize new layered materials with novel andtargeted properties. The goals of the proposed Center are thefabrication, characterization, and modelling of such materials. The Planning Grant activity will enable the institution tocomplete the assimilation of a group of qualified personnel,identify the most important scientific issues, plan theadministrative and scientific structure of the Center, andestablish effective University Government Research Laboratory .Industrial Research Laboratory linkages.